International Productivity, Risk Sharing, Savings and Investment

The purpose of this project is to analyze three related issues in international macroeconomics that bear on the fluctuations and long term interdependence of developed economies. The first issue concerns the international transmission of the business cycle. The analysis builds on previous research in which international fluctuations were driven by changes in international productivity. This aspect of the project will involve measuring productivity changes more accurately, which will help to shed light on the nature of productivity changes and their impact on the business cycle. The second issue concerns a striking anomaly within the existing theoretical framework: the economy produces substantially larger correlations between consumption movements than is evidenced by the data from the major industrialized countries. Several extensions of the theory will be explored including the role of tariffs and insurance markets to account for this discrepancy between theory and data. The third issue concerns the close connection between rates of saving and investment observed in industrial countries: that those that save the most typically invest the most as well. At present, most theory predicts that there should be little relation between the two and their close connection is considered one of the outstanding puzzles in international economics. This project is important because it will provide a better understanding of the way the business cycle among the major industrialized countries are linked and may suggest ways to dampen these cycles.